Center for Innovative Biomaterial Education and Research

0332554
Ragauskas

This award is to the Institute of Paper Science and Technology to support the activity described below for 24 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF-03521).

Partners
The partners include the Institute of Paper Science and Technology (Lead Institution), Chalmers University of Technology, Dacula Middle School, Freeman's Mill Elementary School, Georgia Institute of Technology, Georgia State University, North Carolina State University, University of British Columbia, University of Georgia, Royal Institute of Technology, Virginia Polytechnic Institute, VTT Biotechnology and Food Research, Oak Ridge National Laboratory, National Renewable Energy Laboratory, Georgia Department of Natural Resources, USDA Forest Service, Appletonideas, Georgia Pacific, Iogen Corporation, Kemira Chemicals Inc., Kimberly Clark Corporation, Novozyme Inc., and Shell Global Solutions International.

The activity creates a Center for Innovation for Biomaterials Education and Research that will train students both in classroom settings and using electronic technology to develop scientific and technological advances in the conversion of biomass into novel materials. The Center will serve as a clearinghouse of information to the general public and will serve as a means to create a collaborative team of national and international scientists who are focusing on the same problems in wood technology. The proposal addresses a challenge that is important to the economy and the environment of the US and the rest of the world, i.e., how to shift to renewable, environmentally benign materials stemming from the agro/forestry sector. The move from hydrocarbon to carbohydrate technologies can have a wide variety of ancillary benefits, including enhancing rural employment and improving the environment. The proposed activity is critical to advancing our knowledge and understanding in the area of converting abundant biomass into biomaterials. Two deliverables are proposed: (2) development of new scientific and technological advances in conversion of biomass into novel materials, and (2) development of knowledge-rich workforce skilled in these technologies. The program will train students in innovative methods of converting biomass to novel biomaterials; develop a public outreach program describing the benefits of this technology; and discover new scientific processes for the efficient and practical conversion of renewable wood polymers into novel biomaterials including polyesters, nylon-4 polymers and polycarbonate nano-cellulose derivatives.

Potential Economic Impact
The activities will create job opportunities in rural areas of the US where, during the past decade, more than 50 pulp and paper manufacturing plants have been closed jobs are declining due changes in international markets. The partnership will enable the development of new innovative forest products technologies that will be developed with scientifically and technologically empowered workforce. These results will improve the economic, technical and environmental well-being of the nation.

The intellectual merit of the activity lies in the creation of the science basis for conversion of the plastics industry from hydrocarbon-based technologies to carbohydrate-based technologies. This will dramatically improve rural employment opportunities, enhance national security by decreasing dependence on imported oil, and improve the environment by reducing carbon dioxide emissions.

This proposal is excellent in terms of Broader Impacts. The project will educate professionals and the general public on the opportunities and science of converting biomass into innovative bio-materials, and develop new technologies that will provide valuable and practical materials for packaging, transportation, and health-care industries.